Conference on Biomechanics and Neural Control of Movement to be held July 16-21, 1989 in Potosi, Missouri

This action is to support a conference which focuses on an interdisciplinary approach to the study of movement. The engineering Foundation originated this conference which brings together some of the top scientists in the country to discuss current issues in biomechanics and physiological motor systems. Motor control is in one sense, a mechanical problem of moving masses such as bodies and limbs through space to accomplish tasks necessary for the welfare and survival of an animal. Such problems are nominally the domain of the engineer. It is also a problem of biology in that mechanical tasks are performed by biological systems which are evolved over time. These systems are the interest of the physiologists. Therefore, this conference provides a forum for physiologists and engineers to openly discuss research objectives for the field which are of common interest to both groups. A large number of students will be present to take advantage of the conference proceedings and to gain insight from individuals who are already active in the field.